Stabilized Molecular Assemblies

The researh project by Dr. Robin McCarley of Louisiana State University entitled "Stabilized Molecular Assemblies" is supported by the Analytical and Surface Chemistry Program. The goal of the research is to control the 2-dimensional polymerization of dendrimer assemblies and then to utilize the macromolecule as a container for specific guest molecules, which can be released through electron-transfer chemistry. The investigator will study the macromolecule formation as well as, the trapping and release properties of the oligomers. A key objective is the development of selective traps with reversible release properties. This research represents an extension of the investigator's prior work, while also branching out into new fields of exploration.

The ability to control the isolation, storage and release of small molecules has many potential applications with potential for societal impact. These polymerized dendrimers may have utility for the preconcentration of specific target molecules, as nanoscopic sensors, as new materials and for drug delivery. A thorough and fundamental study of the chemistry and performance of these materials is significant.